ERC: Center for Advanced Engineering Fibers and Films

9731680 EDIE This award established an Engineering Research Center (ERC) for Advanced Engineering Fibers and Films at Clemson University with Massachusetts Institute of Technology as a partner institution. The vision of the ERC is to provide an integrated environment for the system-oriented study of next generation fibers and films. The research program emphasizes the use of computation/visualization tools to overcome the barriers of experimental development, structure/property relationships, and control of structures. The research is organized under three thrust areas: Computer-based Product and Process Development, New Fiber and Film Products, and Advanced Fiber and Film Processes. The investigations will target liquid-crystalline systems, metallo-organic systems, and intractable polymer systems. The new processes will include supercritical solution processing, in-situ processing, and self-assembly processing. The ERC will produce software for new film and fiber formulation and processing design. The ERC's interdisciplinary, systems oriented education program will provide the students with a holistic education in fiber and film science and technology. The graduate education will include industrial residency for in-plant research experience. The first year industrial partnership will include seventeen companies. This award is the outcome of the Engineering Research Centers Competition under ERC Program Announcement, NSF 97-5. The funds for the first five years is recommended with a potential duration of ten years under a cooperative agreement.